Convective Heat Transfer in Acoustic Streaming Flows

Flow fields and associated convective heat transfer rates induced by acoustic streaming are to be investigated analytically and by computer simulation. Specifically, three flow fields will be studied: an isolated sphere; the Kundt tube; a sphere placed at a node in the Kundt tube. These are the configurations of primary importance to containerless materials processing in space, for which spherical samples re levitated by an acoustic field in a test cell. The proposed study will provide Nusselt Number correlations for heat transfer for acoustic streaming flows in the above configurations with sound frequencies and amplitudes comparable to those used in space levitation applications, and with gases with Prandtl numbers of 0(1). The analysis will also include the effects of gravity to enable correlation of earth-based experiments, but will be limited to situation where the particle size is much smaller than the sound wave- length. For the Kundt tube problem, the effect of distribution of heat on the walls of the tube will be studied to extract information on acoustic streaming heat transfer in a furnace-like environment.